Collaborative Research: Extraterrestrial He-3 as a ConstantFlux Tracer for Paleoceanographic Studies

ABSTRACT More than 40,000 tons of interplanetary dust particles fall to the Earth's surface each year. Those particles less than 30 micrometers in size retain to a large extent their extraterrestrial isotopic signature. In the central equatorial Pacific Ocean, a limited geographic region of the earth's surface, the flux of extraterrestrial helium, determined by normalization to thorium-230, has been relatively constant through the past 200 thousand years. In this research, investigators from the Lamont-Doherty Geological Observatory and Tulane University will carry out a thorough investigation of the apatial and temporal variability of the He-3 supply to the sediments throughout the world ocean. Other applications and limitations of extraterrestrial He-3 as a constant-flux proxy will also be explored.